POWRE: Modeling of Photon Transportation through Turbid Media

9973787
Lu
This POWRE award supports a project to study theoretically and numerically the propagation of light in highly scattering turbid media, such as biological materials, and its possible application in optical characterization and structural imaging of the media. Funding through this award will enable this beginning PI to establish an independent and viable research activity as a component of a new biomedical physics program being established at the University. The award is funded by the Physics Division, the Division of Mathematical Sciences, and the Office of Multidisciplinary Activities in the MPS Directorate.